RIA: Hierarchical Decompositions for Adaptive Image and Video Compression

This research is investigating a new and innovative class of adaptive and hierarchical methods in image and video compression. It has two primary objectives: (1) to develop a powerful and flexible infrastructure for addressing new and challenging image communication applications, targeted at overcoming the drawbacks of current state-of-the-art methods; and (2) based on this, to formulate novel, optimal, fast algorithms using joint optimization methods. A novel compression framework based on wavelets and efficient, flexible signal descriptions using adaptive wavelet packets and adaptive quantization is being explored. This research is also studying motion compensation in a new hierarchical estimation- theoretic framework, and is formalizing the fundamental subject of optimal resource allocation in a dependent coding environment. Joint optimization of the source-coder functional components is being considered throughout, and is being extended to include the channel for transmission applications. The significance of this proposal lies in its laying the theoretical framework for next-generation high-performance coders, which, we conjecture, will need to be hierarchical and adaptive in their description and will exploit interdependencies among their functional components optimally. Results of the proposed study provide a new and useful knowledge-base for current and future applications requiring scaleable and flexible architectures, transcodability, and compatible subchannels, formats and displays.